Modernization of Biogeochemical Laboratories

9313546 Hayes This award will allow the University of Indiana to modernize its laboratory space that was originally built to accommodate classical rock analysis in 1962 and now must be adapted for research in isotopic biogeochemistry. New hoods and lob benches will be installed, a computer and data facility will be established, and a core-storage and layout room provided with this renovation project. The biogeochemistry labs at the University of Indiana are used by four senior faculty and serve as an important training center for individuals establishing biogeochemistry research groups at other university locations. Through geoscience research, the focus of this lab is on the cycling of carbon in modern and ancient environments. To provide a basis for interpretation of ancient records, members of this research lab study structured fractionation of stable isotopes in modern environments and microbial cultures, the stabilization of sedimentary chemical systems in contemporary settings, and the distribution and abundance's of molecular structures in modern organisms. The origin and development of fossil fuels, the geochemistry of sedimentary carbon, and the development of instrumentation and techniques for both the analysis of stable isotopes in traces of organic material and organic molecules are additional research themes. The modernization of this laboratory is very important for the training of the next generation of biogeochemists, low-temperature geochemists, and geochemically-oriented geobiologists and sedimentologists who will give us new knowledge about global change issues. ***